A Max-Planck/Princeton Research Center for Plasma Physics

Over 99% of the visible matter in the Universe is a plasma, that is a dilute gas of ions, electrons, and neutral particles. Despite their ubiquity, many fundamental and important physical processes which control the dynamics of plasmas remain poorly understood. In turn, this limits our ability to intepret diverse phenomena in space such as accretion onto black holes at the centers of galaxies or the interaction of the solar wind with the upper layers of the Earth’s atmosphere, and it also impacts our ability to engineer and operate experiments on Earth such as magnetically confined fusion devices. The Max-Panck/Princeton Center for Plasma Physics (MPPC) was established as a joint venture of the Max Planck Society (MPS) in Germany and Princeton University in order to forge new collaborations between Universities, the national plasma labs, and international partners in order to tackle some of the most pressing problems in plasma dynamics. The center fosters interdisciplinary collaboration between the plasma and astrophysics communities, as well as international collaboration between these communities in the US, Germany, and elsewhere. It serves to train the next generation of plasma scientists in experimental science, computation, and theory, and its international scope provides unique training for early career scientists, particularly valuable as plasma and fusion science become increasingly international. Finally, the center provides opportunities for the public, as well as students and teachers at public schools, local, and regional institutions to engage in scientific inquiry in ways that enhance their understanding of science concepts and scientific ways of thinking through a well established outreach program at the Princeton Plasma Physics Lab.

The MPPC focuses its effort studying four key topics: magnetic reconnection, acceleration and propagation of non-thermal particles, the properties of plasma turbulence, and magnetohydrodynamic processes in astrophysical plasmas such as the magneto-rotational instability. Uniquely, it leverages international expertise and resources such as experimental facilities and computational methods to lead new studies in theoretical, experimental, and computational plasma physics. The US program concentrates strongly on postdoctoral researchers, who work with senior researchers supported by existing funds. While the postdoc program is the engine that drives research in the center, there are a number of ways in which each participating organization has fused together as a center, for example (1) joint mentoring of postdocs, (2) exchange visits of senior members, (3) joint experiments, (4) joint code development and validation, (5) fostering collaborations across the entire US and German plasma and astrophysics communities, and (6) annual meetings of the center as a whole, and more frequent topical workshops for the community. For example, the MPPC will host a summer school in computational plasma physics at Princeton University within the current period of funding.

This project is jointly funded by NSF's Divisions of Physics and Astronomy (Mathematical & Physicsal Sciences Directorate), and the Office of International Science and Engineering.